RAPID: Quantifying the Influence of Interbasin Groundwater Flow on the Hydrologic Export of Dissolved Carbon from a Lowland Rainforest

This project will facilitate continued data collection on water-carbon
linkages between the rainforest and the deeper hydrogeological system by continuing measures and the continuity of a critical data stream begun under previous NSF funding and as the object of planned projects. Routine weekly data will be collected by a local Costa Rican technician (local high school teacher) who has worked with the project since 2000.